Layer-by-Layer Assemblies: Science and Technology Conference

TECHNICAL AND NONTECHNICAL ABSTRACT
The planned program for this Layer-by-Layer: Science and Technology Conference offers a comprehensive and high level expert coverage of new fundamental advances and applications in the field of layer-by-layer assembled materials. Emphasis on the participation of industrial scientist and engineers promises to effectively enhance academy-to-industry transference of expertise. The training of future practitioners and leaders in the field is afforded by the encouraged participation of postdocs and graduate students.